Numerical Studies of Turbulence-Combustion Interactions in Diffusion Planes

The method of "random vortices" is used to describe the generation and later behavior of turbulence in a chemically reacting flow. This method avoids the steady state assumption which weakens existing models of turbulence. Although it has some limitations, it is one of the most promising steps forward in the numerical analysis of reacting flow fields. An extensive range of Reynolds and Peclet numbers will be tested in various configurations, with a view to identify and predict such critical phenomena as stability, extinction, flame stretch, swirl effect, etc... As the field stands today, large sets of experimental data are waiting to be used for the verification of such improved comprehensive numerical models. The availability of a reliable predictive model in turbulent reacting flow fields has been an elusive goal to the combustion community. During the last twenty years a number of simplified numerical models have been tried but with little generic success. This new method introduces vorticity as a fundamental aspect of turbulence generation; in earlier times insufficient computer performance had ruled out this important refinement. Success in the development of this program would open the way for computer codes of increased flexibility and generality.